Laboratory Materials for Hands-On Exploration of Wireless Networking Concepts

Computer Science (31)
This project develops innovative new laboratory materials that give students hands-on experience with wireless networking concepts and technology. The underlying hardware for student projects is the Cybiko, an inexpensive yet powerful multi-functional communications computer. The resulting materials can be used to augment existing computer networks courses, as several of the exercises illustrate traditional networking concepts, or they can form the core of a new upper-level wireless networking course. The tremendous growth of the internet, in both size and significance, makes it increasingly important that undergraduate students be exposed to fundamental networking technologies and techniques.